The R Transactivator (Rta) of Epstein-Barr Virus

When Epstein-Barr virus (EBV) infects B lymphocytes a latent state is established in which the EBV genome is maintained as a multicopy episome and the cells become immortalized. A small percentage of latently infected cells spontaneously enter the lytic cycle. The molecular events which control the switch from a latent to a lytic cycle are only partially delineated. Reactivation of the lytic cycle is probably initiated by the Z transactivator (Zta) encoded by EBV. Zta is a DNA binding protein belonging to the Jun/Fos family of transcriptional activators. We have identified a new transactivator encoded by EBV, designated Rta, which augments Zta activity. These transactivators induce transcription from promoters which regulate the expression of early lytic cycle genes. Unlike Zta, Rta activates EBV enhancer elements located upstream of early promoters. Deletion and substitution mutants of the gene encoding Rta will be engineered to identify amino acid domains required for transactivation, nuclear localization, and phosphorylation. We have generated a synthetic peptide-specific antibody which recognizes Rta. This and other antibodies we propose to generate will be used to identify mutant and wild type versions of Rta. Also, Rta protein will be purified for biochemical analysis to determine if Rta activates gene expression by direct DNA binding or by interaction with other viral or cellular proteins. The mutants of Rta will be tested for DNA/protein-interactions as well to determine if these properties correlate with biological function. Delineation of these functional domains will help elucidate the mechanism of transactivation. The results of these experiments are expected to greatly enhance the current knowledge of EBV gene regulation. Because Rta has some of the properties of cellular transcription factors, the information gained about Rta is likely to contribute to our understanding of mechanisms of eukaryotic gene control.